Multiple Dirichlet series, Whittaker functions, and the cohomology of arithmetic groups

This research deals with the interactions between number theory and
representation theory. Number theory is the study of the properties
of the whole numbers, and is the oldest branch of mathematics.
Representation theory is the systematic study of symmetry, through the
development of simple mathematical objects that encode the fundamental
irreducible pieces of symmetry. A principal aim of the proposal is to
explore relationships between these two subjects in the spirit of the
"Langlands philosophy," which predicts deep connections between number
theory and representation theory. Today the questions and phenomena
addressed by these subjects serve as driving forces in much of
contemporary mathematics research. Moreover, the individual areas
themselves have contributed many applications in such diverse areas as
coding and data transmission, chemistry, physics, and theoretical
computer science.

The problems that will be investigated in this project focus on
arithmetic groups and multiple Dirichlet series, objects that are
intimately related to automorphic forms. The first part addresses
topics related to cohomology of arithmetic groups and allied areas,
such as the geometry of locally symmetric spaces and the conjectures
linking cohomology to arithmetic geometry and Galois representations.
A central goal of this part is the computational investigation of
torsion in the cohomology of various arithmetic groups and its
relation to arithmetic. The second part studies multiple Dirichlet
series attached to Weyl groups. These are infinite series in several
complex variables that satisfy a group of functional equations
intermixing all the variables. The topics in this part emphasize
connections between these series and combinatorics, representation
theory, automorphic forms, and mathematical physics.